The Role of Meso-Scale Processes in Controlling the Upper Ocean Carbon Cycle in the Coastal Environment - An Integrated Study in Santa Monica Bay, CA

0404405
Gruber

Intellectual merit The coastal oceans are some of the most productive and biogeochemically
active marine environments. Relative to open-ocean cycling, however, comparatively little is
known about the overall role of these areas in the global carbon cycle (e.g. Liu et al. [2000]).
One of the major challenges confronting research in the coastal environment is its very high
spatio-temporal variability mainly as a result of meso- and submesoscale processes. The integral
role of these processes for the coastal ocean carbon cycle and their impact on the net exchange
of CO2 with the atmosphere are virtually unknown.

We propose to address this challenge by conducting an integrated and multi-disciplinary
observational program in Santa Monica Bay, CA. In particular, we will address the following
three goals: (i) quantify the upper ocean carbon budget of Santa Monica Bay over seasonal to
annual timescales, (ii) determine the integral contribution of meso- and submesoscale processes
to this budget and to the air-sea exchange of CO2, and (iii) quantify the relative roles of physical
and biological processes in controlling the carbon balance within mesoscale features as well as
over the entire testbed region.

We plan to address these goals with three research elements: (i) time-series observations
from an interdisciplinary moored platform (see http://www.ioe.ucla.edu/mucla), (ii) bi-weekly
shipboard based water sampling at the mooring site for shorebased analysis of water column
carbon and biogeochemical properties, and (iii) process cruises scheduled on an event basis to
study the temporal evolution of the 3-D structure of the carbon and physical fields associated
with a mesoscale or sub-mesoscale phenomenon. Analyses of the results from these efforts will be
greatly aided by the availability of very high-resolution ocean carbon cycle hindcast simulations
of the area using the Regional Oceanic Modeling System (independently funded).

The proposal's unique contribution consists of the embedding of the process studies into the
framework of a multidisciplinary time-series. The proposed work builds upon the strength and
expertise of the PI and his team in the areas of modeling and data analyses, while continuing
the expansion into the observational realm to address an urgent need for critical new carbon
observations. We already have initiated work on all program elements and will be able to leverage
this proposal upon a number of existing grants and synergistic activities of other investigators at
UCLA and at partner institutions.

Broader impact By working toward the understanding of the net impact of meso- and sub-
mesoscale processes on the upper ocean carbon cycle in the coastal environment, our proposed
program addresses two formidable challenges that the carbon community is facing currently. The
ubiquitous presence of mesoscale variability poses serious problems for the design of an observing
network that attempts to quantify the coastal ocean sources and sinks of atmospheric CO2, such
as is being planned for the North American Carbon Program. In addition, carbon-cycle modeling
studies that require long integrations, such as those associated with climate change, do not have
the computational resources to resolve all mesoscale and submesoscale processes explicitly and
therefore need to incorporate the net effect of them in a parametric form.

Our proposed project will build upon many already existing educational and public outreach
activities. These include the incorporation of data as examples and homework assignments into
several undergraduate classes as well as the undertaking of several educational cruises centered
around the mooring platform. In addition, we will make use of UCLA's long tradition in oceano-
graphic teaching at primary and secondary schools. In particular, we will collaborate with the
NSF funded Center for Ocean Science Education Excellence at UCLA in order to reach out to
K-12 teachers and their students.